Ferromagnetic Insulators for Spin-Polarized Electron Tunneling Studies

They will (1) study the systematics of EuS and other ferromagnetic insulators in contact with metals and as tunnel barriers of thin film tunnel junctions; (2) use the new technique, which allows for the first time tunneling measurements of spin-orbit and Fermi-liquid effects in many metals; (3) look for spin effects in heavy-electron and high temperature superconductors; (4) study the exchange effects with ferromagnetic metals, magnetic domains, and magnetic effects at surfaces for H = 0 to 30 T. This program will (1) give an understanding of exchange effects between ferromagnetic insulators and superconductors, ferromagnetic metals, and paramagnetic metals; (2) give a quantitative picture of electron tunneling through ferromagnetic insulators; (3) permit new measurements giving fundamental results in superconductivity, ferromagnetism, and electron-spin effects in normal metals.